Gauge Theory in Geometry

Abstract

Proposal: DMS 9803616
Principal Investigator: Naichung Conan Leung

The scope of research covers topics in Gromov-Witten theory,
Seiberg-Witten equations and almost Hermitian-Einstein equations.
The proposed project is to count the number of holomorphic curves
on Kahler manifolds with elliptic fibration in terms of modular
forms; study the structure of Einstein four manifolds using
Seiberg-Witten equations and the geometry of Gieseker
stable bundles.

The principal investigator study equations describing different
geometric objects and properties of their moduli spaces.